Matrix-like Representations in Time-Frequency and Applied Harmonic Analysis

Krishtal
DMS-0908239

The project is dedicated to creation, development, and
application of a unified theory of matrix-like representations
for frames, fusion frames, and fuzzy fusion frames; and causality
theory and regular factorizations of pseudodifferential
operators. These topics touch upon a large variety of areas of
fundamental and applied analysis, including frame theory,
pseudodifferential operator theory, Banach modules and
representations of locally compact Abelian groups, non-standard
multiresolution analysis, and signal processing. The problems
studied in this project address interesting and important
questions regarding certain mathematical tools on which modern
signal processing is based. The project is also expected to lead
to new questions in more fundamental analysis, thus promoting
cross-fertilization of the fields.

The investigator and his colleagues develop a mathematical
framework aimed to address various problems posed by the deluge
of data in the modern world. Potential applications include
image processing, wireless communications, and others.
Particular attention is given to an application for proton
computed tomography. Broader impact of the proposed activities
includes integration of research and education, dissemination of
knowledge, and enhancement of interdisciplinary collaboration,
both domestic and international.